Communications and Coding Ideas for Recording

Modulation and coding for the "recording channel" has much in common with the techniques for the data transmission channel, but there are also some striking dissimilarities. One of these is that for the magnetic recording channel there is a "saturation type" nonlinearity which essentially constrains the channel signal to be two-level. The information and communication theoretic aspects of recording is a relatively new field and it has had some remarkable successes in improving storage efficiency and reliability. This project addresses several topics in this new field, starting with modeling the signal distortion and noise properties of the recording channel, then studying spectral density and other statistical properties of combined modulation/coding formats which incorporate run-length and other constraints imposed by the nature of the recording channel. Other topics include error-control coding and efficient detection/decoding techniques.